Sensors: GOALI: Networked Estimation and Decision Computing for Structural Health Monitoring

The objective of the proposed project is to develop decision and control theory, state estimation
algorithms, and mathematical tools for networked sensors in a system-level application area of
structural health monitoring (SHM). We will develop distributed computing algorithms for diagnostic
and prognostic interpretation of the spatio-temporal data. The initial focus is on aerospace
applications but the research results will be suffciently general to be used in many other areas. The
algorithms will use embedded optimization for accurate estimation of the evolving spatio-temporal
pattern of the damage. The computing will be scalable to very large sensor arrays.
The proposed approach is to develop an innovative engineering application in aerospace
SHM area through industrial collaboration and then generalizing the results. Existing SHM work
is aimed at developing sensors, data interrogation methods, and low-level signal processing to
obtain a single damage estimate array. This project will develop system-level statistical algorithms
for estimation of structural health state, monitoring, and decision support based on series of spatial
data arrays obtained from distributed networked sensors. The algorithms will allow for scalable
and reconfigurable distributed parallel computing implementation.
Intellectual merit. We propose to develop algorithms for spatio-temporal estimation of structural
damage that can be scaled to very large spatial data arrays through networked computing.
The engineering need and potential for practical impact come from collaboration with Honeywell.
The place of the problem formulation with respect to existing work is characterized by the
following highlights: (i) We concentrate on mathematical processing of the existing sensor data,
rather than developing new sensing systems; (ii) We focus on spatio-temporal processing of the
data, while the existing SHM literature is focused on obtaining a single spatial pattern of the
damage. Modeling and trending the temporal evolution of the damage will enable prognostics;
(iii) We pursue system scalability through constrained optimization-based estimation algorithms
implemented through distributed computing. Existing distributed algorithms are for optimizing
a small number of parameters. We will estimate large spatio-temporal arrays; (iv) The decision
system design will include uncertainty, missing data, self-healing capability etc, as opposed to
considering an idealized and simplified mathematical problem.
The main steps and challenges in the proposed work include: 1. Formulating models of spatiotemporal
evolution of the damage and criteria of estimation optimality. 2. Developing solutions of
optimal statistical estimation and detection problems through embedded convex optimization of a
log-likelihood index. 3. Developing scalable algorithms through networked distributed computing.
Broad impact. Algorithmic and system engineering approaches in this proposal would accelerate
industrial adoption of the SHM technology by reducing false alarms and improving scalability.
This would enable condition-based maintenance of structures reducing airline flight delays and improving
military aircraft readiness. Other aerospace applications include next generation space
vehicles and space habitats. The transition into aerospace engineering practice will be facilitated
by the collaboration with Honeywell. The research would help in developing large networked sensing
systems in other areas. These include SHM of civil structures (buildings, bridges, etc), marine
and ground vehicles, and industrial plants. The results could be also extended to sensing and
health assessment in medicine, geophysics (e.g., earthquake related damage), and bio or ecosystem
damage.
We will take steps towards developing graduate training in the area of decision technology for the
networked sensors by including the research results in the curriculum of existing courses. During
the planned university visit, the industrial co-PI will teach an industrial-oriented graduate-level
course. The students involved with the project or attending the courses will have an opportunity
to work as interns at Honeywell, which will provide them with an additional practical training.
1